REU Site - Undergraduate Research Scholars in Electrical and Computer Engineering

This award provides support for an REU Site at the University of Connecticut for up to three years. Eight students will be recruited for an eight-week summer experience and eight students will participate in an academic year program. Students will have a unique opportunity to engage in research related to electrical and computer engineering. The program will serve to encourage undergraduates to pursue advanced degrees in engineering and thus impact the nations need to increase the number of U.S. citizens and permanent residents engaged in research-related careers. It is also anticipated that this REU Site will have a Broader Impact on the nations need to have broader participation in the research enterprise of citizens and permanent residents from demographic groups traditionally underrepresented in science and engineering.